Functional Roles for Short-term Synaptic Plasticity in Neuronal Networks

Bose, Booth
The primary goal of this project is to derive general
principles that underlie how short-term synaptic plasticity
(STSP) is utilized by neuronal networks in three different
computational and architectural settings. These settings are
motivated by concrete biological examples arising in crustacean
stomatogastric ganglion (STG), rat hippocampus, and cortex.
Specific aims include determining the effect on phase maintenance
of multiple depressing synapses and intrinsic cell properties in
pacemaker-driven networks, determining how multiple depressing
synapses can introduce multiple, co-existent stable firing
patterns in reciprocally-connected networks, and determining how
depressing excitatory and inhibitory synaptic inputs in an
afferent-driven network can generate frequency-selective, steady
state, and transient network responses. The investigators
develop and use techniques of geometric singular perturbation
theory to project and analyze the dynamics of these complicated,
high-dimensional neuronal networks onto lower-dimensional slow
manifolds. These techniques allow them to understand how
different synaptic and intrinsic parameters contribute to and
modulate network behavior. They work closely with
experimentalists who, in a parallel research program, are
investigating the effects of synaptic depression in the
crustacean STG.
Synaptic plasticity refers to the ability of a synapse to
change its strength as a function of its usage. It is widely
found in neuronal circuits across the brain. While experimental
studies of short=term synaptic plasticity (STSP) are necessarily
focused on the particulars of the neural system under
investigation, modeling of the type proposed here can provide
insights into the more general properties of STSP. The
investigators study the possibility that seemingly independent
roles for STSP can be grouped together based on how the network
architecture constrains STSP to operate. Elucidating the general
principles behind these operations provides a framework for
understanding how STSP participates in very diverse neuronal
computations across brain regions. Due to its interdisciplinary
nature, this project is expected to be of interest to members of
the experimental, computational and analytic neuroscience
communities. Additionally, the investigators continue to teach
computational neuroscience and mathematical biology courses that
they recently developed. Graduate and undergraduate students
have the opportunity to work directly with their experimental
collaborators. Thus students become well positioned to continue
pursuits in either experimental or theoretical fields, or in an
area that combines the two. This enhances the development of a
trained workforce at the critical intersection of mathematics and
biology.